A Study of Supernovae

Baron, Edward 9417242 Baron will model the spectra and light-curves of both Type II and Type I supernovae. He will calculate detailed models of both light curves and synthetic spectra of supernovae in order to compare with observations from the ultraviolet to the infrared in order to predict velocities, abundances, and distances to supernovae, as well as to constrain theoretical models for the explosion mechanism, progenitor system, and yield of radioactive Ni and Ti. Baron has refined the expanding photosphere method into an accurate tool for determining calibration independent distances to supernovae. His models give accurate values of the total emitted flux of supernova and thus should give accurate results for the Hubble constant. ***